Career: Principles and Practices of Dependable Distributed Computing

This research will advance the theoretical foundations and
explore practical implementations of dependable distributed
system technology. A distributed system is dependable, when
it provides guarantees regarding its performance, fault-
tolerance, correctness and compositionality.
The research objectives will be achieved through synergy
between the research in distributed systems with its focus
on fault-tolerance and correctness, the research in
parallel computing with its focus on speed-up and
efficiency, and the practical engineering considerations of
specification, development, deployment and performance of
systems. This proposal envelops three investigation areas:
(1) Robust Algorithmics: Development of fault-tolerant and
efficient distributed algorithms and exploration of
limitations on achieving robustness in distributed
computing.
(2) Building Blocks: Definition and analysis of dependable
distributed building blocks needed by applications
requiring precise guarantees; and design of specification
frameworks for capturing designs and optimizing distributed
system deployment.
(3) Distributed Implementation: Development of exploratory
implementations of compositional building blocks and robust
algorithms, and evaluation of their performance in
realistic and simulated settings; empirical evaluations
will complement the analytically established efficiency
characterizations.
The educational component includes: developing and
delivering new courses in distributed computing in support
of undergraduate and graduate programs in computer science;
and, building a research group that attracts graduate
students and postdoctoral researchers.